Conference: Conformal geometry, Einstein manifolds, and minimal submanifolds

This award supports the ICM Satellite Conference on “Conformal Geometry, Einstein Manifolds, and Minimal Submanifolds”, to be held at The Pennsylvania State University in University Park, PA, during July 13-17, 2026. This conference will feature talks by approximately 30 leading experts from around the world doing work in these closely-related fields. The meeting will also provide valuable opportunities for junior participants to present their work to and interact with senior mathematicians.

Research in conformal geometry, Einstein manifolds, and minimal submanifolds has a long and intertwined history going back over 125 years, with many examples of ideas in one field enriching all fields. This conference will focus on cutting edge developments that are expected to have significant positive impacts in all these fields, including geometric regularity results for related geometric PDEs, existence and compactness results for distinguished (sub)manifolds, and the enumeration of local and global conformal invariants. The conference also includes many activities which will contribute to the professional development of junior participants, including a poster session and the broad distribution of research discussed during the conference. The conference webpage is https://sites.google.com/view/confeinmin-conference-2026/.